The Design and Characterization of Novel Metal-Binding Proteins

Regan
9904811

1. Technical

Metal ions in proteins play an enormous variety of roles. A few examples
include stabilization of protein structure, oxygen transport, redox
activity and nucleophilic catalysis. This proposal focuses upon three
different types of site: structural zinc sites, catalytic zinc sites and
redox-active iron sites. The approach taken is to design novel metal
binding sites on simple protein frameworks that are amenable to study
using a variety of biophysical methods. In this way the minimal requirements
for a particular type of site can be systematically explored, and how these
minimal requirements vary with the positioning of the site in the protein
and the nature of the local environment can be investigated. Additional
features can then be incorporated. Such studies are complimentary to those
in which a natural metalloprotein is changed by mutagenesis, or an active
site is mimicked by a small molecule. They will both enhance our understanding
of natural metalloproteins and generate molecules with novel properties.

2. Non-technical

Proteins play an enormous number of key roles in all living organisms.
A substantial fraction of these proteins are metalloproteins, which means
that a bound metal ion is important for protein stability or activity. A
wide variety of catalytic activities are associated with metal ion
centers. This project is designed to learn more about the requirements of
such centers by designing new metal ion binding sites onto simple protein
frameworks that do not normally bind metal ions. In this way we can determine
the minimum features of a site that are required to achieve a particular
activity. The outcome of these studies will not only provide a better
understanding of the functioning of natural metalloenzymes but also have
the potential to generate proteins with novel catalytic activities.